Symposium: Chemical Perspectives of Microelectronic Materials; Boston, MA; November 28 - December 2, 1994

9420465 Ballance A Symposium on the chemical perspectives of microelectronic materials is being held to address current topics in the chemistry of synthesis, processing and use of semiconductors, dielectrics and metals in a wide variety of potential areas in the field of electronics/photonics with a strong emphasis on fundamental atomic level processes. Particular focus will be on chemical issues associated with the rapidly expanding and technologically relevant areas of nanotechnology and chemical sensors. Additionally there will be an opportunity to assess the field, and to establish ties between universities, research institutions, and industry. It is expected that top scientists in the field will attend, and that the Symposium will provide an effective forum to discuss and delineate the critical scientific issues in this research area, and to consider and define the approaches and techniques needed to address them. %%% An evaluation of the status of chemical aspects and perspectives of microelectronic materials, and especially the critical chemical issues in nanoscale technology, and recommendations by the Symposium participants for the emphasis of future work, and their assessment of the most important contemporary research issues will be of great value to the understanding and enhanced utilization of chemical methodology in the field of microelectronics.